Electrochemical, Spectroelectrochemical, and Photoluminescence Studies of Transition Metal Halide Clusters in Room Temperature Haloaluminate Ionic Liquids

This project is in the general area of analytical and surface chemistry and in the subfield of nonaqueous electrochemistry. The primary thrust of this experimental activity focuses on the electrosynthesis and characterization of transition metal halide clusters in room temperature haloaluminate melts. Using electrochemical, spectroelectrochemical, and electroluminescent techniques, Professor Hussey will study the redox and spectral properties of bromo- and chloro- complex clusters of rhenium, molybdenum, tungsten, niobium, and tantalum in various oxidation states and he will also explore the range of melt acidities over which these species are stable. Such fundamental knowledge of the physicochemical behavior of these transition metal cluster complexes is essential to an understanding of the structure, bonding, and reaction kinetics of these catalytically important entities. These studies leading to this new knowledge have been enabled in large measure by the advances that this investigator has made during the tenure of his previous NSF grant, CHE- 8412730, in developing sophisticated experimental protocols for handling these extremely challenging systems. The continued development of new experimental methods in molten salt chemistry is an added benefit that is also anticipated from this research.